Understanding gamma-ray burst emission physics with multiwavelength data

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This is a program to perform a multi-wavelength study of Gamma Ray Bursts (GRBs) to: 1. Systematically analyze GRB afterglow data, and clearly identify emission components that have distinct physical origins; 2. Perform detailed modeling of broadband, multi-component afterglows using a sophisticated external forward shock model; 3. Analyze the GRB prompt emission data collected by Swift/BAT and Fermi/GBM, and investigate the validity of various empirical correlations; and 4. Model the broad band prompt emission of GRBs. Data will come from the Swift and Fermi space missions, and from HESS and VERITAS on the ground.